MP/PPD: Using Adaptive Computer Technology in Science, Mathematics, and Engineering

9452860 Gilbert The primary focus of this project is dissemination of the best and most current information on making post-secondary education in the fields of science, engineering and mathematics (SEM) more accessible to SEM faculty and to students with disabilities. Students with disabilities may have difficulty completing certain SEM course-work tasks independently, (e.g., reading, writing or manipulating laboratory instruments). Modern computer-based technology can provide the needed assistance in many of these situations. Students and faculty need to learn about the existence and potential of this technology. The American Association for Higher Education and Project EASI (Equal Access to Software and Information) propose to conduct an information dissemination project to increase the knowledge-base of these groups thereby increasing inclusion and participation of students with disabilities in SEM studies. These students often face obstacles to SEM studies caused by inaccessible buildings, computers, laboratmries, information resources, and negative attitudes of administrators and faculty regarding their abilities and potential in SEM studies. Project EASI has spent the last six years working to help institutions of higher learning overcome physical and attitudinal barriers that exist for students, faculty, and staff with disabilities. Unfortunately, despite recent reports and task forces, insufficient work has been done to distribute the growing amount of research and information about how adaptive computer technology can help students with disabilities who want to study and work in the fields of SEM. This project will take the best available information about the application of adaptive technology in SEM and distribute it to a widely decentralized education audience through four kinds of dissemination: electronic, brief print publications, videos, and live presentations. The goal of these efforts is to promote the rapid dissemination of innovat ive intervention strategies that will increase the participation of students with disabilities in SEM educational and career tracks.***